Mathematical Sciences: Conference on Large Scale Optimization

This award supports a conference entitled: "Conference on Large Scale Optimization". The conference will be held from 15 to 17 February 1992, at the University of Florida. The conference will be concerned with algorithms, applications, and software for large scale optimization. The topics will include applications in the fields of engineering, computer science, operations research, optimal control, economics, telecommunications, and stochastic optimization. Its major objective is to provide a forum for cross-disciplinary exchange of research advances, as well as a foundation for joint research cooperation and stimulation for future research.